Computer Workstation Cluster for Theoretical Chemistry and Chemical Physics

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Nevada in Reno in the acquisition of a high performance computer workstation cluster, consisting of six HP 700J and two SGI Indigo 2 XZ workstations. This equipment will enhance research in a number of areas including the following: (1) Theory of dynamics and spectroscopy, (2) theory of plasma and intense radiation fields, (3) chemistry of reactive intermediates, (4) theory of collisional activation, and (5) many body theory of atoms and molecules. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a developmental environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing.